Large Scale Asperhical Earth Structure

This research is to study the large-scale aspherical and spherically averaged structure of the earth from long-period seismic data. The variety of three-dimensional earth models in the literature and their general inability to provide detailed fits to the data indicate where work is needed. Two areas will be emphasized: the expansion and interpretation of a dataset of PIP and PKIKP equivalent modes, some of which are very anomalously split, and the detailed spectral analysis of long- period surface wave packets which should provide extremely good lateral resolution of upper mantle structure. The goal is to combine this information with datasets of structure coefficients and long-period travel times to constrain global models of aspherical structure.